Constraints on Magma Chamber-Hydrothermal Interaction from the Seamail Ophiolite (Oman)

This project will precisely map and extensively sample, on an outcrop by outcrop basis, a small number of carefully selected crustal subsections in the Semail ophiolite between the layered cumulated gabbros and the sheeted dike complex. The goal is too obtain comprehensive structural, textural, mineralogical, and fluid/rock chemical information, all within a precisely defined spatial context, related to magma-hydrothermal contacts. Knowledge of the rates and mechanisms of mass and energy transfer across magma chamber margins is necessary to understanding the style and vigor of submarine hydrothermal circulation and ridge- crest magma chamber evolution. This project will utilize models initially developed to study magma hydrothermal systems related to intrusive plutons associated with well-characterized porphyry copper deposits.